Mathematical Sciences: Computational amd Algorithmic Problems in Design Theory

The principal investigator will study a number of computational and algorithmic issues which are relevant to many research problems in design theory. One of the most significant algorithmic questions to be studied is the isomorpohism problem for linear codes. Also investigated will be various decomposition problems and algorithms which will aid in their study, with the focus on the decomposition of Steiner systems and hypergraphs in general. Besides being of interest from an algorithmic point of view, the computational studies proposed will provide needed insight into difficult problems involving designs, hypergraphs, linear codes, and finite geometries.